Structure Determination of Small Transition Metal- Containing Ions by Matrix Isolation/Fourier Transform Infrared Spectroscopy

In this project in the Physical Chemistry Program of the Chemistry Division, Professors Allison and Leroi will study the matrix isolation infrared spectroscopy of mass-selected ions. Based on early promising experiments carried out under their previous grant, these researchers will develop a new methodology via laser-induced fluorescence and Fourier transform infrared spectroscopy of small cations in neon matrices at 4 K. Structural analysis of both organic and organometallic cations, co-deposited with counter ions, will be demonstrated. Complementary theoretical calculations of ionic structures and vibrational frequencies will also be carried out. The goals of this work are to provide a new tool for the structural characterization of molecular ions as well as to probe the structure/function relationships governing organometallic chemistry. %%% The collaborating principal investigators have designed and constructed a unique instrument which is a marriage of two completely different types of spectroscopy, one which separates different ions according to their masses, the other which measures the characteristic absorption or emission of light by molecules or ions. This technique should aid in the determination of the molecular structures of transient species as well as in the elucidation of mechanisms of ion-molecule reactions which are important to many areas of atmospheric, environmental, and materials sciences.